Presidential Young Investigator Award

Dr. Zamer wants to continue studying the genetic basis of physiological phenomenon and their expression in varied environment. He wishes to examine the mechanisms by which natural selection leads to differential reproductive success as a key issue in evolutionary biology. In order to examine how the extent to which genetic variation affects physiological performance, Dr. Zamer will study both the organismal and metabolic and organismal levels of physiological performance. He will qualify genetic components of total variation for several metabolic and organismal level physiological characteristics underlying genetically identical sea anemones under a variety of relevant environmental conditions. This research is an important contribution to marine biology and will enhance our understanding of the influence that genetic variation has on reorganization of metabolism during environmental change.